Tectonic Geomorphology of Active Collision, Western Taiwan

9315041 Knuepfer The active oblique arc-continent collision of the Eurasian and Philippine Sea plates is well exposed in Taiwan. This is a geomorphic study of regional terraces and streams to determine whether geomorphic domains change along and across strike and to place the results in a tectonic context to address along and across strike variations in the tectonic style and perhaps uplift rates.